Digitally Corrected Oversampling Data Converters

The proposed research involves the development of faster and more accurate analog-to-digital and digital-to-analog data converters. The converters studied are of the interpolating type, which effectively trade conversion speed for accuracy. That is, in interpolating type converters, the use of a multibit (rather than a single-bit) front end in an interpolating converter can lead to a higher resolution for a given speed or a higher conversion speed for a fixed resolution. However, a multibit front-end requires an analog component accuracy which cannot be achieved without complicated and expensive trimming and or randomizing techniques. A novel digital self-calibration and correction technique which achieves the requisite accuracy of the multibit system without any trimming or randomizing, using only a simple additional digital stage is being developed in this research. The work involves an architectural study of the novel system, development of the circuit blocks needed and design, fabrication and testing of several fully integrated converters based on the novel principle. This new approach should lead to faster and or more accurate converters than any of the currently available ones. Such converters will lead to further developments in important applications such as digital radio and television, digital audio, ISDN, radar, etc.